Teacher/Faculty Enhancement, Curriculum Development and Laboratory Improvement for Aquaculture

This project will develop an educational infrastructure in New England to provide science educators with background knowledge and equipment to prepare students to work in the aquaculture industry and related businesses. The project seeks to implement and expand existing aquaculture programs and to increase the number of teachers and faculty in middle, secondary and postsecondary institutions in New England who are knowledgeable in the sciences, technology and use of laboratory equipment to enable students to learn about the emerging aquaculture industry. The project will also adapt existing curricula and develop new aquaculture curricula in topic areas where none currently exist.